Magnetic Tape Module for Processing and Archiving Satellite Image Data for Undergraduate Laboratories Using Earth Resources Data Satellite Images

Millersville University of Pennsylvania will purchase a 6250 bpi tape drive and associated software. This equipment will be used to upgrade courses in meteorology, oceanography, and geology. With the equipment students will be able to read in Landsat and NOAA polar orbiting satellite data from standard magnetic tape to an existing Earth Resources Data Analysis System (ERDAS). They then will be able to archive processed images from ERDAS on tape for later analysis. Likewise students will use the tape system to capture sequences of weather satellite images for analysis. Millersville University of Pennsylvania will match the NSF grant with an equal amount of funds.